Cluster of Clusters: Synthesis and Structural Systematics of High Nuclearity Au-Ag Clusters

A series of large metal clusters containing gold and silver will be synthesized and structurally characterized. This series follows a well-defined growth sequence based on vertex- sharing, a feature that will be extended in this project. The effect of changes in (typically) phosphine and halide ligands on the stereochemistry of the clusters will be systematically studied. Clusters of high nuclearity but containing metal combinations such as Pt-Au, Pt-Au-Ag, Pd-Au, and Pd-Au-Ag will be prepared by synthetic routes analogous to those developed for the Au-Ag system. Synchroton or rotating anode X-ray crystallography will be used for the structural determinations of the large clusters. Since these clusters will be intermediate in size between individual atoms and extended lattices, it is possible that the results of these studies may be relevant to the nucleation and growth of fine particles, quasi-crystals, and amorphous materials. %%% In this project in the Inorganic, Bioinorganic, and Organo- metallic Program of the Chemistry Division, Dr. Boon K. Teo will synthesize, structurally characterize, and study the growth systematics of large clusters containing up to seventy- five metal atoms. These species are near the interface between large clusters and colloids, where interesting new materials having potential applications as electronic and magnetic materials and as catalysts may be anticipated.